RUI: Acquisition of Combining Optimizations to Create Powerful Parallelization Techniques

This is a Research at Undergraduate Institution (RUI) project. This project will investigate both the techniques for combining optimizations in compilation and the potential benefit of applying combined optimizations. A determination of when optimizations can be combined has not been discovered. Likewise, a tool to automatically generate an optimizer for these more powerful combined optimizations has not been developed. The objectives of this ongoing project are: investigate the properties of optimizations that permit their combination, describe when two optimizations may be combined, and propose a tool which generates an optimizer for the newly combined optimizations. A generalization of the description to combine chains of optimizations will also be investigated. This project will be used as a vehicle to introduce undergraduate students to the research process and actively involve students in the theoretical investigation, the implementation, the experimentation, and the dissemination of the results. Students will be encouraged to involve themselves in all aspects of this project. ***